Mathematical Sciences: The Complex Geometry of Equivariant Yang-Mills Connections

9404468 Segert The scope of research entails studying the geometry and analysis of Yang-Mills fields in mathematical physics in particular the nature of the non-self-dual fields and their topological significance. It is also proposed to consider the existence of locally almost complex structures on the six- dimensional sphere. This research has potential applications to gauge field theory in mathematical physics. ***